Upper Eocene Spherule Layers: Number, Geographic Extent, and Source Areas

9903811
Glass
Two different kinds of upper Eocene spherules have been previously described: 1) microtektites belonging to the North American tektite strewn field, and 2) clinopyroxene-bearing spherules. The number of Eocene spherule layers is in dispute. The purpose of the proposed research is to determine the number of spherule layers and their geographic extent using Ocean Drilling Project core samples from 15-20 sites. We will also look for associated impact ejecta. Biostratigraphic data, petrography and composition (major, trace, and isotopic) of the spherules, and the nature of any associated ejecta will be used to sort out the number of spherule layers. Geographic variations in spherule abundance and petrographic and compositional data will be used to determine the nature of the parent material and the source area (and, if possible, the source crater) for each spherule layer.